Recruiting and Retaining STEM Teachers through Authentic Partnerships between a Four-Year Institution and Community Colleges

This Noyce Track 1 project aims to serve the national need of recruiting, preparing, and supporting high-quality STEM teachers. Additionally, this project will support 18 scholars in mathematics, biology, environmental, and physical science. It will support students through scholarships, mentoring, coursework, and seminars so they can become highly skilled teachers in their local communities. Key project activities include teacher career workshops to recruit community college students into teaching, as well as supervised teaching experiences within partner schools. Through in-person mentoring, and online professional development the project intends to develop a community of STEM teachers in Maine. The proposed project components will enable high-achieving prospective teachers to become qualified secondary STEM teachers with extensive content and pedagogical expertise needed to teach in high-need schools.

This project at Saint Joseph’s College of Maine includes partnerships with Southern Maine Community College, Bonny Eagle School District, Westbrook Public Schools, and teachers at Deering High School, Old Town High School, and Lake Region Middle School. The project seeks to prepare and support 18 undergraduates entering one of four STEM and Secondary Education pathways (Biology, Chemistry, Environmental Science, and Mathematics) over five years. The long-term goal is to meet the needs of rural and urban Maine schools by recruiting future STEM teachers from the local community. This project will be iteratively evaluated. Evaluation of this project will be guided by the following evaluation question: How do the perceptions of teaching as a career differ between community college students and four-year students, and how do those perceptions change as they experience various Noyce interventions? A report of accomplishments and challenges will be shared with the advisory council annually, while research will be disseminated to regional and national audiences via conference presentations and journal publications. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.